Collaborative Research: Growth of the Tibetan Plateau and Eastern Asia Climate: Clues to Understanding the Hydrological Cycle

For fifty years, the Tibetan Plateau has been recognized as the largest topographic feature that perturbs atmospheric circulation. It serves as an ideal field laboratory for understanding the geodynamic processes that build high terrain. Accordingly, the growth of the plateau should have altered atmospheric circulation and therefore written an evolving paleoclimatic signature not only on eastern Asian regional climates, but on global climate as well. Despite many recent studies, we still do not know precisely when the Tibetan Plateau reached its current dimensions and how it perturbs atmospheric circulation. This project brings together geodynamicists, atmospheric scientists, and paleoclimatologists in a multidisciplinary study of the when and the how.

One of the major goals of the project is to quantify the extent to which Tibet has grown by crustal thickening, by thrust faulting and folding, by flow within the crust that redistributes material there, or by replacement of cold mantle lithosphere with hotter material (all in a state of isostatic equilibrium). Such quantification will take big steps toward the understanding of how high plateaus are built and how continental lithosphere deforms, topics at the forefront of geodynamics.

Determining how Tibet has grown will require determining when crustal shortening and thickening occurred, using basic field methods and modern laboratory techniques, and quantifying paleoaltitudes with new isotopic tools. Applying such paleoaltimetric techniques, however, requires an understanding not only of how the atmosphere transports isotopes, but how the evolving high terrain affected surface temperatures at times in the past.